RUI: SiO Maser Studies

AWARD NO: AST-0606764
PI: Gordon McIntosh
INSTITUTION: University of Minnesota Morris
TITLE: RUI: SiO Maser Studies
ABSTRACT:
This research focuses on the SiO maser emissions from long period/Mira variable stars.
The maser radiation originates within several stellar radii of the surface and can be used
as a probe of the physical characteristics of these outer regions and of the dynamics of the
star. The maser pumping mechanism itself is still the subject of debate with both
collisions and radiation being suggested. Moreover, the variability seen among maser
emissions from Miras may be the result of shocks passing through the extended
atmospheres of these stars.
The goal of this project is to allow the continuation of an ongoing observational program
using the remote observing capabilities of the Haystack Radio Astronomical Observatory
in Massachusetts to follow the maser emissions of Miras. The result will be an SiO maser
data set of approximately six years duration with high phase coverage and velocity
resolution for the stars Mira and R Cas. The data will provide the basis for an improved
understanding of the SiO maser pumping mechanism and the dynamics of the
circumstellar region in which the masers originate. The extended duration of the
observations is important to reduce the effects of random variations that occur during
individual phase cycles in maser locations and velocities. A second goal is to complete a
re-survey of stars previously observed in 1983. Comparisons between these and new
measurements will be made to statistically describe the variations in the velocity centroid
over time. Large shifts in the velocity centroid may indicate the presence of a binary
partner. Stars discovered to have large shifts will be monitored in a search for the orbital
parameters of the system. Finally, the orbital parameters of at least two SiO maser
sources, R Aql and Mira, will be determined using published and archive data along with
new observations of the maser emission as a velocity probe.
Undergraduates will be trained through direct involvement in the data acquisition,
analysis, and interpretation. Students will further be expected to co-author and present
their results in publications and conferences. The work will also be included in a variety
of undergraduate courses as an example of astronomical concepts, data analysis, the
quantum mechanics of maser emission, the physical parameters of the circumstellar
environments that generate SiO masers, and binary stars. Moreover, the research
proposed here is expected to considerably enhance the research climate at the University
of Minnesota Morris and in a physics department recognized for a traditionally high
fraction of women graduates.